CAREER: Closed-Loop Augmented Environment Systems

Research Component: Closing the loop in AE systems. The project addresses augmented environment (AE) and virtual environment (VE) tracking system inadequacies through a new `unified-system` approach to AE system design. Even with the best head-mounted displays (HMDs) and graphic systems available, the shortcomings of tracking systems hinder or preclude the usefulness of many AE/VE applications. Such applications, including on-line surgical visualization, assembly or maintenance assistance, and interactive training simulations, require robust solutions to the following problems. 1) Achieving millimeter (position) and 0.1 degree (orientation) accuracy. 2) Readily achieving precise calibration of tracking systems to the real world. 3) Eliminating (or minimizing) latency in tracking (and graphics) systems to prevent gross misalignment during head motion. This project aims to develop new technology and improved methods for making video-based AE systems usable and productive for commercial and scientific applications. The long term research goal is the accurate alignment of real and virtual objects in an augmented environment under all conditions of user activity including rapid head motion. Achieving such performance required the integration of new image and tracking function components into an AE system. A 2D alignment error metric forms a basis for the compensation of a variety of 3D tracking and calibration errors. Corrections are computed and applied at every frame creating a closed loop system which compensated for both static and dynamic (latency-induced) misalignment. The project will produce increased understanding of closed loop AR systems by 1) implementing a software simulator to facilitate rapid exploration of closed loop AE system design options for feature detection error measurement, and error compensation, 2) designing a new AE system architecture with components which have simple, well-defined interfaces to other co mpenents in the system, and 3) developing a prototype of a complete closed-loop AE system and quantifying its performance characteristics. Education Component: Richer understanding through experience. Teaching responsibilities include at least one course during each Fall and Spring semester. A two-course Computer Graphics sequence for graduate students is under development. These courses build on the introductory undergraduate course and emphasize project creation. Hands on system-building learning opportunities, at the appropriate levels for students, are a major focus of the educational activities. In addition to syllabus design and class teaching, directed-research and advising promotes student-faculty interactions. A CD-ROM with computer graphics simulations of graphics concepts will be developed for both introductory and advanced levels.